Built In Test Techniques for Mixed-Mode VLSI Systems

This research is on test methods for mixed signal and analog VLSI systems. Aspects being considered are: 1) design of high-speed dynamic current sensors for application in iDD pulse response test method, for mixed-mode, MOS and bipolar circuits; 2) development of high-speed static current sensors for utilization with the IDDQ test method; 3) verification of a dual to the IDDQ test scheme for analog circuits (denoted VDDQ testing). Approaches are: a) on-chip generation and comparison of VDDQ voltage references, and b) external measurement of VDDQ voltages using analog boundary scan test techniques to bring them out of chip in analog form using sample and hold circuits or in digital form after performing on-chip A /D conversion. Research activities designing, manufacturing and evaluating various integrated circuit prototypes of built-in dynamic and static current sensors and of VDDQ test circuitry.